The Preparation of Superconducting Thin Films by the Decomposition of Metal-Organic Complexes

Thin films of superconducting oxides containing copper will be prepared by decomposing volatile metalorganic complexes. The films will be characterized and compared with bulk materials. Attempts will be made to deposit the films on perovskite and MgO substrates in order to ascertain if added stability could be obtained by the use of such substrates. A second goal of the research will be directed towards the utilization of an RF glow discharge to perform plasma-assisted metalorganic chemical vapor deposition (MOCVD). Preliminary studies have indicated that high quality aluminum oxide films can be produced on silicon substrates at temperatures of 350 C by the decomposition and oxidation of aluminum isopropoxide using an RF glow discharge.